Academic Achievement and Teacher Development in Science (AATDS)

The Project will (1) focus on results of large-scale K-5 science education reform on student achievement to further understand what practices and curriculum facilitate learning and benefit all students. (2) the Project will use Tennessee's unique statewide, longitudinal database to develop a comparable longitudinal database that includes several culturally diverse California school districts.

(3) Student achievement findings in Tennessee's standardized assessment will be linked to two NSF-LSC projects' teacher training databases. (4) An additional database will be developed using one or more appropriate assessment measures that may be better aligned with new science curriculum. (6) The TerraNova test will be used to allow value-added analysis in Tennessee and California and linked to the Stanford Achievement Test 9th Edition, used in California.